Energy Production and Risk Management in a Competitive Environment

This award provides funding to the University of Oklahoma for the support of a Combined Research-Curriculum Development (CRCD) project entitled, "Energy Production and Risk Management in a Competitive Environment," under the direction of Dr. Arthur M. Breipohl. The goal of this project is to develop a new curriculum for electrical engineers that integrates recent advances in power system planning and resource scheduling with the use of options and commodity futures contracts to manage risk. In addtion to the development of the M.S. program, this project will result in the development of teaching modules for two courses and an educational version of a successful commercial simulator that is used in scheduling of and planning for generation assets. The primary objective of this proposed program is to teach and simulate the integrated power system operation and financial trading environment in the emerging energy industry. The proposed curriculum comprises new courses co-taught by engineering, business, and education school faculty; lab-based simulations that integrate power system operations, financial trading, and risk management; and student projects and internships.